MRI/RUI: Acquisition of a Small Astronomical Observatory on Mauna Kea

AST-0216493
Heacox, William D.

A 32-inch clear aperture telescope will be built and instrumented by the faculty and students of the University of Hawaii at Hilo, Hawaii for the purpose of training students in astronomical instrumentation technology development and for use by the astronomical sciences research faculty for compelling research in the areas of: evolution of galaxies in dense clusters, the formation and early evolution of multiple star systems, the formation and early evolution of planetary systems and the chemical evolution of our galaxy. The State of Hawaii will provide the building and observatory dome). The undergraduate astronomy degree program at the University of Hawaii, Hilo, will extensively use the planned observatory. Young people of the State of Hawaii will be trained for careers in astronomy and for technical jobs within the many Observatories on Mauna and in Hilo.
***